Thermodynamic Properties of Electrolyte Solutions

The thermodynamic properties of electrolyte mixtures are studied. The isoactive-solvent theory developed in this work is based upon a semi-grant canonical ensemble, for which the solvent activity is the independent variable and the thermodynamic excess functions are expressed in mole ratios. Preliminary evaluations indicate that vapor-liquid equilibria predicted by the theory are in excellent agreement with experiments on ternary systems containing mixed solutes and/or mixed solvents. The theory is being tested for various classes of systems under a wide range of conditions and compared with established theories and correlations. Isopiestic experiments from 25 to 100 C are performed for aqueous solutions containing non-volatile electrolytes. In these measurements, the activity of the solvent is determined simultaneously for single and mixed solutes. Therefore, the theory can be compared directly with experiment without interpolating between experimental points.